Homological Methods and Ideal Closures in Commutative Algebra

DMS-0244405
Huneke, Craig L.

Abstract:

This project is in the field of commutative algebra, especially in the
homological theory of Noetherian rings. The lever being used to study this
area is in developing the understanding of maximal Cohen-Macaulay modules
and extensions of modules. In addition, the project also studies
several areas central to commutative algebra, including the tight closure of
ideals, integral closures of ideals, the core of an ideal, evolutions,
symbolic powers, and rational singularities. The focus of this proposal
is on several open conjectures, especially regarding rings of finite and
countable Cohen-Macaulay type, conjectures of Auslander on the vanishing
of extension modules, and questions of Schreyer, among others. Among
the methods being used is the study of maximal Cohen-Macaulay
modules not only through study of infinite resolutions, but with techniques
coming from tight closure and reduction to characteristic p. The methods are
in part classical methods as well as those being developed by the proposer.

Commutative algebra arose from the 19th century study of polynomial equations in
many variables, and their solutions. The relationship between polynomial equations and
geometry goes back at least to Descartes and the idea of coordinatizing the plane.
Commutative algebra studies the solutions of such polynomial or power series equations
by forming an algebraic object, called a ring, which consists of the 'generic' solutions.
The algebraic properties of these generic solutions then give insight into the
geometric and algebraic nature of the equations. An important technique in this
field has been to study such equations by reducing the coefficients modulo prime numbers
for all large primes. A particular example of this has been the explosive development
of the theory of tight closure over the last fifteen years. Commutative algebra combines
techniques from a number of other areas including combinatorics, topology, and analysis.